International Conference on Porous Media and its Application in Science, Engineering and Industry, June 16-21, 1996, St. Augustine, Florida

ABSTRACT 9505177 Vafai The proposal is for partial support of an "International Conference on Porous Media and their Applications in Science, Engineering, and Industry", to be held in June, 1996. The meeting will be addressed by the major international researchers in the subject and will encompass broad aspects of porous media phenomena. The conference proceedings will be published in book form.